Global regulatory control by DNA methylation patterns in Escherichia coli

9305166 Low This proposal describes experiments that will examine the roles of DNA methylation patterns in regulating Escherichia coli gene expression and physiology. Although most of the 18,000 "GATC" sites in the E. coli chromosome are methylated at the N-6 position of adenine by the deoxyadenosine methylase (Dam), eleven nonmethylated GATC sites (NM-GATC sites) have been identified and cloned. Two of these sites, NM-GATC 76 and NM-GATC77 located at 76 and 77 min on the E. coli chromosome respectively, require the presence of leucine-responsive regulatory protein (Lrp) for methylation protection. Additional Lrp-dependent NM-GATC sites have been identified and will be isolated by direct cloning from CHEF gels. The objective of this research are to identify and characterize the genes controlled by Lrp-dependent NM-GATC sites and to determine the roles of DNA methylation in regulating gene expression in response to environmental stimuli and growth state. %%% These experiments will have a significant impact on our knowledge regarding the mechanisms by which E. coli responds to environmental stimuli and coordinates gene expression. Methylation pattern formation provides a mechanism by which multiple genes can be controlled coordinately in response to environmental signals. ***